Collaborative Research: Nonlinear Wave-Based Exploration of Jointed Structures

This award supports research to develop a novel wave-based approach to investigate and analyze systems constructed with mechanical joints, such as structural frames used commonly in advanced manufacturing, as well as buildings, bridges, vehicles, and aerospace structures. The wave-based models constructed will be highly efficient yet capable of capturing complex nonlinear response, and will yield valuable qualitative and quantitative information on the design of structural frames to achieve engineering objectives, such as high stiffness and load capacity, damping sufficiency, and dynamic response. The developed analytical methods will advance the state of the art in asymptotic methods as applied to nonlinear, continuous structures, while the experimental methods will be among the first high-fidelity approaches applied to the study of wave scattering in jointed systems. This will transform practicing engineers’ ability to analyze and optimize large, three-dimensional frames quickly and accurately while accounting for nonlinear dynamic response. In addition, the research will open a fundamentally new approach for experimentally interrogating the amplitude- and frequency-dependent dynamic behavior of mechanical joints through the exploitation of wave scattering. Outreach activities at both the University of Vermont and Rice University target participation of high school students on research tasks. The investigators will coordinate research tasks with personnel from The Johns Hopkins University Applied Physics Laboratory to ensure real-world applicability of the research findings.

Owing to the complexity of jointed structures, current predictive methods typically use high-fidelity numerical models to compute dynamic response. Due to the joints' small domain size compared to the members, these methods allocate the majority of computational effort to linear components, while devoting vastly smaller computational effort to the sources of complex damping and nonlinear dynamic behavior (i.e., the joints). This apparent paradox is addressed in this research through exploration of wave-based analysis approaches in which known wave solutions represent elastic members, effectively eliminating their computational burden, while mechanical joints are represented by nonlinear frequency- and amplitude-dependent reflection and transmission (scattering) behavior, found either using analytical and/or experimental approaches. The goals of this research effort are as follows: (i) Explore wave-based approaches for studying complex, jointed structures, with the aim of decreasing model size and complexity, and increasing solution transparency and fidelity; (ii) Establish an asymptotic formalism for analyzing nonlinear scattering for nonlinear mechanical joints coupling bar and beam elements; (iii) Experimentally determine the transmission, reflection, and damping characteristics of nonlinear mechanical joints subjected to incident harmonic waves, and (iv) Demonstrate new capabilities arising from wave-based approaches using representative jointed systems of engineering interest, and disseminate widely within the structural dynamics community.